Workshop: Design Challenges of 100-Million Transistor VLSI Systems

Funding is to support a workshop (spring 1998) to explore challenges in digital system design posed by the very large integrated circuits (systems-on-silicon) made possible by advances in VLSI technology. With 100 million transistor chips imminent and 500-million transistor designs feasible, there is a pressing need to assess what new design technologies and methodologies must be created to make the creation of such systems feasible. Workshop participants include CAD and design experts from both academia and industry. The workshop report includes: 1) a statement of pressing problems posed by systems-on-silicon; 2) recommendations about important research areas relating to systems-on-silicon; and 3) viewpoints on how to make these CAD and design communities aware of these trends and challenges.